Pac-TEC--"The Pacific Technological Education Center"

Pac-TEC is a consortium of two-year colleges, secondary schools, and businesses situated in the Silicon Valley with regional partnerships in seven western states. This project is developing and distributing state-of-the-art instructional materials and techniques to secondary schools, colleges, industry, and government. These materials focus on innovative mathematics, science, engineering, and technology and are aimed at students who will become technicians. Emphasis is being placed on the development of materials which will enhance students' problem solving abilities, computer literacy, effective oral and written communication skills, and ability to work in groups. The materials are being created around open-ended design based project work.